Mathematical Sciences: Harmonic Analysis and Partial Differential Equations

An analysis of qualitative properties of solutions of linear and nonlinear partial differential equations will be made. A portion of this effort will be aimed at the partial differential operators themselves and the harmonic analysis which occurs naturally in this context. The main emphasis will be on linear elliptic and parabolic equations with minimal smoothness conditions and on nonlinear evolution equations. The genesis of this research lies in relatively recent work of the principal investigator on basic boundary value problems for the Laplace operator on general domains whose boundaries may have corners, edges and other features which appear in applications but present obstacles to mathematical analysis. Sharp maximal function estimates were obtained for the Dirichlet problem over a certain parameter range. Similar results for the Neumann problem were also obtained over a conjugate parameter range. Work will proceed in an effort to find the appropriate analogous results for the general elliptic operator. Equally important will be extensions of present theory in the direction of systems. Although the two-dimensional case will work, the current theory fails for higher dimensional systems. Work will also be done on the inhomogeneous Laplace equation on nonsmooth domains. In addition to the forcing function, zero boundary values are prescribed. It is known that averages of second derivatives cannot be estimated in this setting, but it may be sufficient to estimate gradients. Nonlinear evolution equations in this project will be those related to fundamental work of the principal investigator on parabolic equations involving only powers of the Laplacian. The object was to show that nonnegative solutions must always exist. That being accomplished, work will now proceed to focus on the Laplace operator applied to powers of the unknown including changes of sign, the objective being that of showing existence of variable-sign solutions and understanding their properties. Applications are expected to the general theory of differential equations in particular to potential theory.